Collaborative Research: AF: Small: Efficient Massively Parallel Algorithms

Modern computing systems have moved beyond single-core
single-processor devices to more modern multicore processors operating
in networked systems and available in warehouse-scale clouds
popularized by companies such as Amazon or Google. Future advances in
computing power will likely come not mainly from faster devices, but
by processing in inherently parallel and distributed environments, and
by understanding how to exploit the parallelism inherent in many
algorithmic problems. Simultaneously, the world has entered the era of
``big data'' with large data sets on which previously unthinkable
sized problems with great economic and social impact need to be
solved. This new parallel, interconnected, big-data world specially
requires fundamental research on their algorithms, which are both
parallel and distributed.The algorithms in this project address this
important research challenge by building and developing new general
frameworks for massively parallel computation.

As the main thrust of this project, the investigators will design
fundamental and efficient algorithms for core massively parallel
computations especially in the practical Massively Parallel
Computation (MPC) framework. In particular, they will consider methods
for reducing the number of rounds in the MPC model as well as
tradeoffs between rounds, memory, number of machines, and
communication time. They seek to find new MPC algorithms for basic
graph problems such as connectivity, matching, vertex cover, maximal
independent set, as well as other basic string matching problems such
as suffix trees, edit distance, and longest common
subsequence. Another focus is dynamic algorithms for massively
parallel computation, which modify the output efficiently in a
parallel/distributed setting based on frequent modifications of the
input and with direct applications in evolving social networks, the
World Wide Web, road networks, scheduling systems among others. The
investigators will augmenting current parallel
environments/architectures with better data structures and
abstractions to allow simplified and fast implementations of the
current fundamental algorithms that can be used in practice
via open-source codes. The discoveries in this project will be
integrated into existing and new courses and books about parallel
algorithms, distributed algorithms, and foundations of big data. The
wealth of attractive open problems in these areas will provide both
challenging research topics and intuitive accessible problems to
inspire students to enter research in computer science and
mathematics. In particular the project will involve Ph.D. students and
post-docs, undergraduate students, and even high-school students
(especially students among minorities and women), many of whom will
continue their research at other academic institutions and research
centers, further broadening the impact of this research.